Weak Complexes Studied by Fourier Transform Microwave Spectroscopy

In this project the structures of weakly bound molecular complexes are to be investigated by means of high resolution Fourier transform microwave spectroscopy. The project has six components: binary complexes containing 1) sulfur dioxide molecules, 2) water molecules, 3) cyclopropane molecules, and 4) rare gas atoms; 5) complexes formed by three monomer molecules; and 6) high temperature investigations. The complexes will be formed in the supersonic expansion into a vacuum of a high pressure mixture of component gases with a neutral carrier gas. Through this expansion the complexes are also cooled to very low translational and rotational temperatures, about 10 degrees above the absolute zero. The work will provide information on the structures and internal motions (dynamics) of the complexes, as well as on their electronic properties such as the electric dipole moment. The results will provide fundamental information about the nature of weak interaction forces between molecules and on intermolecular potential functions, and will contribute to the data base needed to develop and test models and theories which can guide chemists and biochemists in how compounds can interact and grow into larger clusters. %%% The clusters which will be studied constitute a state of matter that is intermediate between that of the dilute gas and the condensed phase and play a crucial role in condensation and evaporation phenomena. Weak intermolecular forces also play a decisive role in the structure and function of biological systems, in which parts of a biological molecule interact with other parts to give it a structure characteristic of its function. Fundamental investigations on intermolecular forces as conducted in this research will also contribute to the data base on which the theories for the prediction of new biochemical substances can be tested and calibrated.